CCF: SHF: Medium: Collaborative Research: A Static and Dynamic Verification Framework for Parallel Programming

Human society is faced with an increasing number of problems including
stubborn diseases and international security/climate threats. The
computer simulations and advanced data management methods necessary to
solving these societal problems can only be realized through increased
use of parallel computing at all system scales, including desktops,
servers and the cloud. Efficient large-scale parallel computing
however requires advanced parallel programming methods. Such methods,
unfortunately, have a greater proclivity for software bugs that
increase cost through lost cycles on super-computers and these same
bugs undermine confidence in simulation results. This research
addresses the challenge of developing parallel computing software by
creating new scalable methods to support advanced parallel programming
models that provide rigorous guarantees on program correctness. The
societal impacts of this work stem from increasing reliability of
software powering the national infrastructure, advanced educational
methods to train future generations, and pedagogical material in the
form of course notes and software for broad dissemination. It also
helps maintain the United States in a leadership situation with
respect to the available talent pool in this area.

Providing rigorous guarantees on correctness of existing parallel
computing software requires that two classes of methods be developed,
evaluated, and taught widely: scalable code-level (static) checking
methods, and downstream detailed (dynamic) checking methods. This
project develops these novel and much-needed correctness checking
methods around the Habanero Java programming and compilation
system. The research is to augment the system with correctness
obligations emitted during compilation and checked at all later stages
of translation and deployment. A key highlight of the project's
approach is that it allows some of the correctness obligations to be
checked statically in the context of safe subsets of Habanero Java.
Obligations that are not able to be statically checked, especially for
larger subsets of the Habanero language, are marked for checking
dynamically through novel active-testing methods. An Operational
Semantics written in the Coq notation lends cohesion to the work by
ensuring that the division of correctness checking between static and
dynamic techniques is sound. In summary, this research helps advance
the science of parallel programming in terms of rigorous correctness
checking methods, while at the same time contributing to the broad
practice of programming at all scales from desktop to cloud
computing and high-end scientific simulations.